Math Sciences: "International Conference on ComplementarityProblems: Engineering & Cconomic Applications and Computational Methods; November 1-4, 1995; Baltimore, MD

9503509 Pang This award will provide partial support for the International Conference on Complementarity Problems: Engineering and Economic Applications and Computational Methods to be held at Johns Hopkins University from November 1-4, 1995. The goal of the conference is two-fold: (1) to have engineers and economists explain to the complementarity community the applications and needs in their fields and (2) to introduce to engineers and economists the latest computational tools for solving complementarity problems. There are three major themes of the conference: engineering applications, economic equilibria, and computational methods. Major topics to be covered include the relationship of complementarity to the following problems or areas: contact mechanics problems, structural mechanics problems, nonlinear obstacle problems, elastohydrodynamic problems, game-theoretic models, computational methods, and software development. The conference will bring together leading researchers in this field from the international community and participants will include both junior researchers and senior experts.